X-Ray Standing Wave Investigation of Heteroepitaxy: Alkali Halides on Germanium

A research program is proposed which utilizes the unique capabilities of x-ray standing wave experiments to determine the structure of chemically distinct overlayers epitaxially grown on nearly perfect crystalline substrates. The growth habits of lattice matched alkali halides on germanium surfaces shall be studied in a specially configured ultra high vacuum analysis system which include high energy electron diffraction andAuger electron spectroscopy. This apparatus shall also be well-suited to investigate standing waves excited by an incident high energy electron beam, which may prove to be new surface structure probe of wide applicability. A successful study of I-Vii heteroepitaxy on germanium will permit the engineering of heterostructures with major perturbations in optical properties over atomic distances, an entirely new class of materials with excitations in the near ultra-violet. These materials may have important technological applications, such as the possible development of new ultra- violet lasers.